To Attend Sixth International Conference on Permafrost in Beijing, China, July 10-24; Participate in a Field Excursionto the Tibet-Qihai Plateau, July 10-24.

This is an international travel grant jointly supported by the Polar Earth Sciences and Artic Programs and the Interfacial, Transport, and Separations Program. The purpose of this international travel grant is to allow the traveler to interact with academics in the Peoples Republic of China. The activities include: (1) presentation of a paper at the Sixth International Conference on Permafrost in Beijing on July 5- 9, 1993; (2) participation in a field excursion tot he Tibet- Qihai Plateau from July 10-24, 1993; and (3) a visit to two research institutes: the Central Research Institute of Science and Technology of th Ministry of Chemical Industry; and, the Lanzhorn Institute of Glaciology and Geocryology. The common thread in these activities is the relation of interfacial and transport phenomena to behavior of soil in polar and other low temperature climates. The traveler is an expert in predicting differential frost heave. This phenomena has engineering importance since its occurance can cause significant damage to raods, airport runways, pipelines, and buildings.